SBIR Phase I: Infrared Spectroscopic Ellipsometry

J.A. Woollam Co. Inc. will study the feasibility of extending the company's range of ellipsometric capabilities into the mid-infrared, where there exists a wealth of new monolayer, surface and interface materials characteristics to be investigated. New monolayer level surface and interface science in semiconductor-related materials systems will be studied, with the goal of transforming present IR ellipsometer technology into a quality product worldwide.